Organization of the Workshop on Novel Solitons and Nonlinear Periodic Structures to be held in Victoria, British Columbia, Canada

Proposal Number: ECS-9802944 Principal Investigator: Ulf Osterberg Title: Optical Matched Filter Detection for Fiber-Optic Communication Abstract This proposal describes a one-year activity in which the PI will conduct an experimental and theorectical program to prove the feasibility of a novel multiplexing/demultiplexing scheme that combines optical signal processing with conventional electronic detection. The scheme utilizes orthogonal waveforms which can overlap in both time and frequency so that it can be more efficiently use the available bandwidth of the optical fiber. An optical pulseshaper and a matched filter are used for the encoding and decoding of the ultrafast wavelet. This technique, if successful, will have potential benefit to increase the maximum transmission capacity of the optical fiber over 100 Gigabit/sec.